NYI: Increasing the Performance of Scalable Shared-Memory Multiprocessors

Scalable shared-memory machines are a promising way of attaining large-scale multiprocessing without surrendering much programmability. Achieving high performance from these machines, however, is challenging because many complex architecture and architecture-software implementation issues that have been only partially studied considerably impact the performance of the machines. The objective of this research is to contribute in three areas to help make shared-memory multiprocessors the preferred source of computing power. The three thrusts of this project are to: study the optimal division of responsibilities among the hardware, compiler, and operating system to maintain cache coherence in scalable share-memory multiprocessors; design algorithms and hardware to effectively support multiprogramming of parallel programs in scalable shared-memory multiprocessors; and optimize the management of memory hierarchies and the interaction of the operating system with the architecture.